Investigation of Novel Ground States in Heavy Fermion Systems

9400755 Andraka Technical abstract: This Condensed Matter Physics Project investigates the physical properties of metallic materials known loosely as heavy-Fermion systems. The major thrust deals with cerium and uranium compounds and alloys which exhibit non-Fermi- liquid-like behavior at low temperatures. These materials exhibit transport or thermodynamic properties that differ from ordinary Fermi-liquid like metals such as copper. Other areas of research include the cross-over from magnetic to nonmagnetic ground states, materials with low carrier concentrations, effects of the crystal structure and crystal disorder on the formation of heavy-Fermion states. A special emphasis is placed on those physical systems which are derivatives of heavy-Fermion superconductors. The experimental probes include heat capacity measurements at zero and large magnetic fields, magnetic susceptibility and magnetization, electrical resistivity and magnetoresistance as well as collaborative experiments like neutron diffraction, NMR, Hall effect and thermopower. Non-technical abstract: This Condensed Matter Physics Project investigates the physical properties of metallic materials known loosely as heavy-Fermion systems. In these materials the electrons act differently from those in ordinary, or "Fermi-liquid-like" metals such as copper. Materials being studied include cerium and uranium. Some of these materials and their alloys have compositions which exhibit superconductivity which in some ways is reminiscent of the high-temperature superconductors. The heat capacities, electrical transport, response to magnetic fields of the materials will be determined. The study is of fundamental interest, as well as technological interest in the context of high- temperature superconductors. ***